Presidential Young Investigator Award: Removal of ParticlesFrom Water by Filtration

Research is conducted on filtration of water. In particular, the effects of particle size distribution on the length of time a filter can remain in service before cleaning it is studied. Mathematical modeling of the process and verification of the models are combined in laboratory experiments.